Symposium on Magnetic Materials for Magnetoelectronic Devices at Iowa State University on May 17-18,2000

ECS-0080517
John Snyder

This proposal will increase student participation at the M4 Symposium on Magnetic Materials for Magnetoelectronic Devices to be held May 17-18, 2000 at Iowa State University. The purpose of the symposium is to provide a forum for discussion and dissemination of cutting-edge research in the rapidly emerging area of magnetoelectronics. The symposium is planned to give an efficient, comprehensive view of the present and future of magnetoelectronics: combining both breadth and depth, both next generation and far-reaching research on materialsand devices. An unusually strong list of speakers have already agreed to make presentations. There will be no parallel sessions, so all participants can attend all the presentations. The target audience is researchers, educators and students with an interest in magnetoelectronic materials
and devices, from academia, government and industry.

Students do not often have the opportunity to attend a symposium of this type. Student participants will benefit from the opportunity to get an overview and in-depth look at the current and future direction of the emerging field of magnetoelectronics. The symposium should benefit both beginning students, and those who have advanced experience in the area of magnetoelectronic devices.